Travel Support for INET '92

NYSERNET requests $82,000 to support travel of U.S. session chairs and/ or speakers (some 30 individuals) for the INET '92 Conference. Involving this group will open and expand U.S. Academic participation in the conference which will bring together key individuals from countries around the world who are involved in designing, implementing, or funding networking facilities on a national or international scale for the academic community. The funds will be targeted towards those individuals whose participation in the program is crucial for a well-rounded U.S. response.***